New Employee Orientation Video

This award will produce a video presentation that will highlight NSF's achievements and mission. The goal of the program is to educate new NSF employees about working at the Foundation.